CT-ISG: Collaborative Research: Intrusion Detection Techniques for Voice over IP

Haining Wang
College of William and Mary
0627340
Panel: P060969
Collaborative Research: Intrusion Detection Techniques for Voice Over IP

Recently Voice over IP (VoIP) is experiencing a phenomenal growth.
Being a time sensitive service, VoIP is even more susceptible to
malicious attacks than regular Internet services. Moreover, VoIP uses
multiple protocols for call control and data delivery, making it
vulnerable to various attacks at different protocol layers. The
already-known security solutions for data networks fall short of
defending VoIP applications because of the differences of cross protocol
interactions and the way in which the different handshakes effect the
distributed service elements and consequently the end user quality of
service (QoS) of VoIP. This project seeks to develop a series of
intrusion detection techniques suitable for VoIP and experimentally
verify their commercial viability. Overall objective is to detect known
and unknown attacks in an accurate and timely manner, without incurring
a noticeable delay in call setup times.

The research plan consists of two major components:
Protocol-state-machine (PSM) based mechanism for detecting known
attacks, and Hellinger-distance based (HD) mechanism for detecting
unknown attacks. The incorporation of the communication between
protocol state machines is particularly suited for intrusion detection
in VoIP, because call control and media delivery protocols are
synchronized by exchanging synchronization messages for critical events
throughout the established sessions. The core of HD detection scheme is
based on using the Hellinger distance to measure the deviation from
normal network protocol behaviors. To have the detection mechanism
insensitive to site and traffic pattern, a dynamic self-regulating
threshold is used, thus making the detection mechanism robust, widely
applicable, and easier to deploy. Research results of the project will
be broadly disseminated through publication, web pages, and technology
transfer to industry.